Summer School Course/Workshop in Equatorial Physics

A summer school on equatorial physics emphasizing the role of tracers will be held during June, 1991 at URI. This will be focused on, but not limited to, participants in the JGOFS and TOGA programs. A major goal is to familiarize investigators who do not appreciate the unique dynamics near the equator.